Joint Support of Proposal "Moored Measurement of Thermohaline Circulation and Meridional Heat Flux in the Subtropical Western Atlantic at 26.5 Degrees N"

In this project, PI's will deploy an array of current meters near 26 degrees North in the Western North Atlantic in order to directly measure volume and heat transport components of the thermohaline circulation. Measurements are directly related to central goals of both the NOAA Atlantic Climate Change Program (ACCP) and the World Ocean Circulation Experiment (WOCE). Measurements will extend a time series started in 1988, and will eventually lead to a seven-year time series of volume transport and a six-year series of heat transport. Focus will be on investigating climate-related flow transients, and an attempt to resolve the western boundary eddy heat flux component for correction of planned ACCP and WOCE Atlantic heat flux sections.